Workshop on Fluid Motion Driven by Immersed Structures: Analysis, Computation, and Applications

This project will provide travel support for graduate students and junior faculty to attend the Workshop on Fluid Motion Driven by Immersed Structures, to be held in August of 2010 at the Fields Institute. The meeting will be organized around three main themes: formulation and analysis of the underlying governing equations; algorithmic and computational issues related to increasing accuracy and efficiency through use of adaptivity, novel time-stepping schemes and parallelism; applications to problems in the biological, physical and engineering sciences. The principal goal of this workshop is to advance the field of fluid-structure interactions on various fronts, in part, via the gathering of a number of highly-respected applied mathematicians and engineers, who have agreed to present keynote lectures. In addition, the workshop will include two tutorials targeted to graduate students and junior mathematicians, with the goal of providing training opportunities to young scientists. By providing travel support, the workshop will facilitate the exposure of graduate and undergraduate students to state-of-the-art current research.

The workshop will bring together pioneers in both applied mathematics and engineering, who work on advanced computational techniques for simulating the interactions between fluid and an immersed structure. There is tremendous interest in the development and application of such techniques, in large part, because of the multitude of applications in biology and medicine. For example, these techniques have been used to simulate fluid flows around heart valves, so to shed insights into the design of prosthetic mitral heart valves. Also, recognizing that a commitment to nurturing young scientists is essential to the continued growth and success of a field, the workshop will attract junior participants (graduate students and junior faculty) by providing travel support and by making sure that keynote lectures are accessible.